Travel: The 2025 HRI Pioneers Workshop at the 2025 ACM/IEEE International Conference on Human-Robot Interaction

This grant will provide travel support to about 10 U.S-based students to attend the Human-Robot Interaction (HRI) Pioneers Workshop, to be held in conjunction with the ACM/IEEE International Conference on Human-Robot Interaction (HRI 2025). HRI is a selective venue that bridges robotics, human factors, artificial intelligence, behavioral sciences, human-computer interaction, and other related fields to advance knowledge around designing effective interactions with robots. The HRI Pioneers Workshop provides a forum for undergraduate and graduate students to present their work, learn about the current state of HRI, and network with one another and with select senior researchers in a relaxed and interactive setting associated with the conference. Workshop participants will discuss important issues and open challenges in the field, encouraging the formation of collaborative relationships across disciplines and geographic boundaries. Alumni from prior years of the workshop will be invited to participate in a forum with current attendees to further develop these professional relationships.

The availability of travel funding will be widely advertised to bring in a large and diverse pool of potential funding awardees. Criteria for selection include having the need for funding, the timing in the student's career, the estimated benefit to the attendee and to the workshop as a whole, and the quality and fit of the application to conference topics. In alignment with the workshop's overall goal to bring together a variety of academic and industry researchers, the selection committee will also seek to fund students from a wide range of personal, disciplinary, institutional, and topical backgrounds. Participation in the workshop will provide an opportunity for participants of diverse backgrounds to increase their knowledge of the current state of the field of human-robot interaction and to encourage them to continue their career as HRI researchers in academia, government, or industry.